SGER: Insect Juvenile Hormone and Nematode 1in-14

9510109 Willis Dr. Willis wants to compare the structure and activities of nematode lin-14 with that of the insect juvenile hormone at the molecular level. If there are similarities, then she will be able to focus on whether such a gene as lin-14 might act directly on insect cuticular protein genes. This research will shed light on the regulatory effect of juvenile hormone on insect metamorphosis. ***